Bilateral NSF/SERC Workshop on Organometallics in Organic Synthesis, August 2-7, 1992, Loch Lomond, Scotland

This award from the Office of Special Projects of the Division of Chemistry will enable the participation of twelve young U.S. chemists in the Bilateral NSF-Science and Engineering Research Council (SERC) Workshop on Organometallics in Organic Synthesis being held at Loch Lomond, Scotland, on August 2-7, 1992. This workshop, convened at recommendation of the NSF Chemistry Advisory Committee, brings together some twenty-five young American and British scientists who are likely to become leaders in the field. %%% The formation of carbon-carbon bonds in a predictable manner is of utmost importance to organic synthesis. In this context, reactions which proceed through the intermediacy of organometallic complexes have become increasingly important. Organometallic chemistry bridges the traditional disciplines of organic and inorganic chemistry by allowing metals to act as templates for organic reactions. The primary aim of this Bilateral NSF-SERC Workshop on Organometallics in Organic Synthesis is to expose young scientists to the wider community of international scholarship and to build the foundation for long term international collaborations.